Operators on Hilbert Space

Abstract :

In broad terms, the purpose of this project is to increase our knowledge about
linear operators acting on a complex, separable, infinite dimensional Hilbert space.
The proposer plans to continue work that was done under prior NSF grants, using
results and techniques that were obtained in the recent past by the proposer, his
coauthors, and his students, to accomplish this. In particular, the proposer will
work on the invariant subspace problem for various classes of operators such
as the Lomonosov-amenable operators, the sub-n-normal operators, the contractions
with spectral radius one, and the power bounded operators. These classes are more
general than some others in which the proposer has been instrumental in the solution
of the invariant subspace problem.
Operators on Hilbert space may be thought of as the natural generalization of
finite complex matrices, and such matrices play an important role presently in
the solution of many problems in the real world such as signal processing, populationstudies, various types of optimization procedures, etc. But the natural mathematical
setting in which to cast certain problems in computing, quantum physics, nuclear
fuel processing, etc. is in the more general setting of operators on Hilbert space.
And there is ample evidence to show that knowledge about such operators, obtained
from a purely mathematical investigation, very frequently is useful in resolving
real-world problems of the sort mentioned above. This project aims to increase
such basic knowledge about operators.